REU Site for Oregon Marine Science: From Upper Estuaries to the Deep Sea

Abstract: 0648515
This award provides renewed funding for a Research Experience for Undergraduates (REU) Site program in marine sciences at Oregon State University's Hatfield Marine Science Center (HMSC) located in Newport, OR. The program is called "From Upper Estuaries to the Deep Sea" and will support thirteen students during a ten-week summer research program for three consecutive summers. Nine students will be based at the HMSC and four will be based at the OSU Corvallis campus with undergraduate interns funded via other sources. The program will include independent research projects by the students, field trips, workshops and seminars. It will conclude with student poster presentations and written reports. Funding primarily supports stipends, housing and travel and some research expenses for the students. The HMSC staff organizes the application process, matches mentors to each student, supervises student research projects, coordinates educational activities and organizes events for the final presentations for the students.